SSC: Ellamek Elicaraq (Yupik) "Learning About Our World"

SSC-9353255 Anchorage School District Anchorage, AK Lamebull, Edna and Bailey, Jim "Ellamek Elicarag (Yupik) "Learning About Our World" This three-year project is designed for seventh, eight, and ninth grade Alaskan Eskimo and Indian children. Its is strengthened by links with Native American cultures and traditions. Each year's camp is a five-week hands-on exploration of science and math applications to the Alaskan environment and major related careers. Professional role models and mentors are important components. School-year follow-up and mentoring is provided for each student. The program's purpose is to provide students with basic tools to choose science and math courses, stay with their studies, achieve in their studies, and graduate to further science studies or careers. Summary objectives, methods, and significance: (1) Fifty middle-school age Alaska Native students each year will remain in school and pursue appropriate science and math studies. Methods: A five-week hands-on camp with highly motivating interactive science and math experiences and extended on-site field trips will prepare students for academic school-year curriculum. The project includes daily counseling, integrated into science and career exploration, by full-time project staff and mentors from the professions and Native community. School-year follow-up includes training for school staff working with Native students and ongoing counseling and metering. Significance: The model is designed to help Native students make and keep making the choice to stay in school and stay with science. The ultimate significance is in preparing more minority and underrepresented students for post-secondary study in science, math, and engineering. (2) Students will gain experiential knowledge of Alaskan environment, geology, climate, ecology, habitats, and technologies coincident to Alaskan science careers . Methods: Activities include extended, interactive field trips to sites where Alaskan careers in these careers are based. Exploration of these disciplines is carried out through high- interest activities structured to build knowledge, inquiry, and communication skills. Significance: The model is designed so that students build a scientific relationship with their world and actually experience opportunities that await them in careers. (3) Students will develop skills and application of knowledge embedded in the natural and cultural world which surrounds them. Methods: Each activity includes science, inquiry, math, and communication skills objectives. Methodologies are contextual; that is, they are practiced and applied in the field, lab, and workplaces most central to the future of the target population. Significance: The model immerses students in the construction of knowledge that is meaningful to them: they will gain a personal base from which to form academic and career goals. (4) Each student will explore, assess, and write about at least three self-chosen science-based careers. Each student will receive ongoing guidance and career exposure for academic and career preparation in Alaska-based science and engineering professions. Methods: A culminating career research and goals activity follows five intense weeks of daily interaction with trained high school and college mentors on staff, teachers, and professional role models and mentors. During the year, school staff and mentors will continue to work with students. Significance: This model is based on a recognition that middle school students do not arrive at or pursue long-term goals in a vacuum, particularly if they are at risk. It allows each student to be nurtured and guided by several counselors and role models, continually. The ultimate significance lies in the p otential for a much greater representation of Native Americans in the nation's pool of science, math, and engineering talent. (5) The summer camp experience will help students to see the real connections among science, math, careers, and their lives. Methods: Discipline knowledge, skills academic goals decisions, and career exposure are interwoven through experiences that have environmental and cultural meaning to the lives of these students. Significance: As students see, construct, and understand the connections between their own lives and careers in science, they begin to believe that such careers are within their reach. They construct goals and plans to achieve such careers.